A Conference to Explore Substantive and Methodological Issues Surrounding the Cross-Cultural Assessment of Environmental Risk

9414184 WILSON This project centers on the differences in the perception of environmental risk factors among Native and non-Native populations in Alaska. Among the factors which contribute to different perceptions are culture, language, economic structure as well as measures of environmental risk factors. Through various observational techniques--surveys, archived data and ethnography--a triangulation of methodologies is intended to provide a rich contextual analysis. The present proposal will support a working conference of experts to explore substantive and methodological issues raised by parallel projects in Oklahoma and Alaska, both of which examine risk perceptions by Native Americans. There presently exists no clearly defined methodology for asssessing cross-cultural risk perception. This project will thus break new ground of great significance for the field of decision science and contribute to the development of the policy sciences in the U.S. Arctic, nationally and internationally. ***